Selective Recognition Of Linear/Curvilinear Features In Remote-Sensing Imagery

This award is a Planning Grant in the Research Opportunities for Women program. The primary goal of this research is to develop a pattern recognition system for detection of desired groups of linear/curvilinear features in remote-sensing imagery. The experimental portion of the proposed preliminary research will focus on the detection of lineaments (noncultural linear or curvilinear features in imagery) which represent zones of structural weakness using Landsat Thematic Mapper (TM) data sets of the Canadian Shield. The desired set of linear features must be distinguished from cultural and other non-cultural linear features. For the proposed preliminary research, a neural network approach will be investigated. Neural networks can conceivably be used for feature extraction, for classification, and for grouping extracted linear elements. The proposed research planning activities are: (1) a comprehensive literature review, (2) development of image representation schemes, (3) construction of training sets for neural networks, and (4) design and preliminary assessment of neural networks for feature extraction, for recognition of desired pattern elements, and for grouping pattern elements into desired linear/curvilinear features. In parallel with the literature review, image representation schemes will be developed to encode information for neural networks. Candidate representation schemes for neural network classifiers include pixel representations (feature vectors associated with each pixel), edge/line representations (obtained as a result of neural network feature extraction (such as boundary contour system representations). Training sets will be constructed and preliminary experiments conducted using, as appropriate, computer resources awarded by the Cornell National Supercomputer Facility (CNSF).